Planning Conference for an I/UCR Center for Thin Films and Interfaces

The Committee on Science, Engineering and Public Policy of the National Academies of Science and Engineering and the Institute of Medicine identified the field of Thin Films and Interfaces as a "high leverage research opportunity that is ripe for discovery." Industrial interests, which cover the wide range of industries, appears to be very high and opens the possibility that an I/UCRC on Thin Films & Interfaces maybe visible and viable. This award is funding an Industry Planning Meeting to study the feasibility and viability of an I/UCR Center on Thin Films and Interfaces to be operated by Brown University and the University of Rhode Island. The universities have drafted a prospectus for the centers research and operations that will provide a basis of study at the September 28 and 29, 1987 meeting. The co-principal investigator and their colleagues are recognized experts in their fields and have the necessary industrial interaction to run this meeting. This award has been coordinated with Dr. Ranga Komanduri, Division of Mechanics, Structures, and Materials Engineering. The Program Manager recommends that Brown University (along with the University of Rhode Island) be awarded a $12,000 grant for one year for an Industry Planning Meeting for an I/UCR Center for Thin Films and Interfaces. Future funding will be based on a new proposal.